Studies of Jet Diffusion Flames Using Particle Image Velocimetry (PIV ) and Planar Laser-Induced Fluorescence (PLIF)

This is a study of fundamental properties of turbulent jet diffusion flames. New strategies are applied for using both particle image velocimetry (PIV) and plasma laser-induced fluorescence (PLIF), separately or simultaneously, to provide measurements useful for understanding flame phenomena or for validating numerical computations. Flame stabilization measurements are made from lift-off condition to near-blowout conditions to investigate the applicability of the recent discovery of low-speed stabilization of edge flames to blowout conditions. A novel PIV method is used for the measurements of entrainment into a jet in coflow that eliminates the uncertainties that occur when reaction takes place and can provide the entrainment coefficient as a function of the jet Reynolds number, Froude number, and axial distance downstream. Measurements of CH are made to examine the nature of the actual flame surface over a number of variables including jet velocity, coflow speeds, and the influence of buoyancy. This effort is coordinated with the NASA Stanford Center for Turbulence Research which is attempting to apply large-eddy simulation (LES) to coflow flames.